Towards a Study of Synchronization: Abstractions, Implementations, and Translations

In spite of the wide variety of synchronization problems and their broad-ranging solutions, some fundamental questions regarding the nature and classification of synchronization have remained unanswered. Led by the observation that any synchronization necessarily involves some kind of arbitration among the participating processes. The notion of the "rank" of a process that serves as the basis for arbitration has been formulated, and an underlying mechanism, called the "ranker", that computes the ranks for the processes has been identified. In order to carry out any kind of arbitration, the ranks that are computed by the ranker module should satisfy certain requirements. By identifying these properties, four different specifications are obtained for the ranker module; these four rankers form a hierarchy. Based on the correspondence between a synchronization problem and the weakest ranker that can be used to solve it, a classificiation of synchronization problems is obtained. This classification subsumes the other classification proposed in the literature. The problem of implementing rankers on various architectures will be considered and the project intends to devise algorithms for translating programs across different architectures.